Few-Level Models in Atomic Radiation Theory

9408733 Eberly The current work focuses on three areas; sub-Casimir effects and related vacuum fluctuation phenomena in dynamically distorted cavities, analytic eigen-solutions for a unique two-channel model in a multi-mode theory and a recent discovery of dressed fields and a new class of solitons for three level media. The research is likely to have significant impact on our understanding of the fundamental nature of laser-matter interactions. ***